CAREER: Multi-Scale Experiments of Fracture in Elastic-Plastic Materials

Abstract

The research and educational program consists of developing a multi-scale
experimental program to study the mechanics of fracture in elastic-plastic
materials. The research is intended to complement and guide multi-scale
simulations of fracture in elastic-plastic materials. The experiments will
focus on understanding the behavior of cracks that exist along the grain
boundary of symmetric tilt bicrystals of either pure aluminum or pure
copper. In such a specimen there is a well known, but poorly understood,
phenomenon known as directional dependence of fracture. If a crack is
introduced along the grain boundary, the amount it grows macroscopically
depends upon the direction within the grain boundary that it propagates. A
judicious choice of crystallographic orientation and loading techniques
will ensure that the mechanical properties at the macroscopic length scale
are identical for both cracks, yet the amount of macroscopic growth will
be different. Thus the explanation for the directional dependence must
depend upon deformation mechanisms at the smaller length scales as well as
the interaction of the deformation mechanisms across length scales.

In the experiments, cracks will be introduced and propagated in opposite
directions within the grain boundary of symmetric tilt bicrystals. The
structure of the asymptotic deformation fields will be measured under
plane strain conditions to investigate a certain type of strain
discontinuity, known as kink shear discontinuity, that is predicted by
theory and observed in some materials under certain conditions. The
existence of kink shear discontinuities depends critically upon plastic
constitutive relations at very small length scales. The next set of
experiments will be to measure the directional dependence of fracture
under both a monotonic and cyclic loading to document the degree of crack
growth in different directions along a grain boundary. The final set of
experiments will measure the lattice curvature of the crystal close to the
crack tip to ascertain the density of geometrically necessary dislocations
which play an important role in strain gradient plasticity. All the
experiments will be simulated with the discrete dislocation plasticity
technique in collaboration with other researchers.

The educational component is to reach out to secondary schools in the
neighborhoods around Columbia University, particularly in Harlem, to
develop a science module that is suitable for students in their final two
years of high school with the goal of inspiring them to continue their
educations. The module will demonstrate that materials are made of
discrete atoms by discussing the phenomenon of diffraction. To do so, the
students will first gain intuition into the diffraction phenomenon by
identifying and matching symmetries in diffraction gratings and the
related diffraction patterns that are created with a standard laser
pointer. Then the crystallographic aspects of face-centered cubic metals
and the symmetries of a cube will be introduced. Finally the students will
be asked to identify the two-fold, three-fold, and four-fold rotation
symmetries in separate Laue back reflection x-ray diffraction patterns and
correlate the patterns with the crystallographic orientations that exhibit
the same sets of symmetries. Thus the students will identify the
symmetries inherent in crystals without having to understand any of the
details of the diffraction process.